Gull Lake Nuclear Physics Conference on Giant Resonances, Gull Lake, Michigan, August 17-21, 1993

This award provides partial support for the Gull Lake Nuclear Physics Conference on Giant Resonances to be held August 17 - 21, 1993 at the Kellogg Biological Research Center in Gull Lake, Michigan. The conference will convene all active researchers, theorists and experimentalists, in order to present and discuss the latest results and to stimulate and suggest future research. The requested funds will support participants, who would make important and valuable contributions to the conference, but who would not be able to participate without any financial assistance.